Modeling Estuary-Shelf Coupled Subtidal Circulation

This study will continue modeling studies of coupled estuary-shelf subtidal frequency circulation, both density-and wind driven. Five particular objectives are posed: 1. A critical evaluation of plume models developed during previous work in comparison with observations of the Chesapeake plume obtained during the MECCAS program; 2. development of a simplified version of the estuary plume model that can be used to model plumes in ambient, inner shelf waters that have more complicated dynamics than the uniform longshore current how assumed; 3. Improvement of the existing steady-state plume model to include the effects of interfacial friction, mass entrainment, and buoyancy loss by vertical mixing beneath the plume; 4. Development of diagnostic models of density- and wind driven shelf circulation offshore of a major estuary; and, 5. Use of the results of the fourth for the inner shelf circulation description of estuary plume model of the second to provide a description of estuary plume dynamics on the inner continental shelf to include all major physical mechanisms for both the density and the wind-driven parts.